Improving Undergraduate Instruction Through Applications of Nuclear Magnetic Resonance Spectrometry.

A recently acquired Nuclear Magnetic Resonance Spectrophotometer is being used in undergraduate instruction in organic, inorganic, physical, and analytical/instrumental chemistry at Luther College. This instrument system, with its enhanced resolution and variable temperature capability allows students first hand experience in the study of molecular structure, stereochemistry, reaction kinetics and thermodynamics.